Conference: MERIF 2027-2028

Over the past decade NSF’s Computer and Information Science and Engineering (CISE)Directorate has funded a set of mid-scale experimental research infrastructure (MERI)platforms, including Chameleon, CloudLab, the PAWR platforms (POWDER, COSMOS,AERPAW, ARA), FABRIC, SAGE, EduceLab, SPHERE, and NDIF. NSF also supports community research infrastructure through the Community Infrastructure for Research in Computer and Information Science and Engineering (CIRC) program. Together these investments give researchers powerful shared platforms. Coordination across their communities helps researchers find the platform suited to their work and makes the collective impact of these investments visible.

The Mid-scale Experimental Research Infrastructure Forum (MERIF) began in 2019 to connect NSF CISE research infrastructure providers, researchers, and aspiring MERI grantees. This award organizes and operates the next two annual workshops, MERIF 2027and MERIF 2028, and extends the same community-support model to the CIRC community through a public CIRC web platform and an annual CIRC community impact report. The workshops help providers propose and manage mid-scale research infrastructure, help researchers identify and use the platform suited to their work, train a new generation of researchers through tutorials and travel support for students and early-career participants, and create opportunities for collaborative research spanning platforms. The CIRC platform provides that community with a project directory, an education and resource hub, a newsletter, and an archive of community events between annual PI meetings.